Use of Coal Ash to Reduce Nitrogen Oxides in the Presence of Ammonia

NOx reduction over metal oxide catalysts in the presence of ammonia is a proven technology which has reached the commercial stage. So called selective catalytic reduction is not however without its problems including high cost, short life, and high disposal costs as spent catalyst is regulated as a hazardous waste. Coal ash is chemically similar to metal oxide catalyst systems containing significant amount os titania, vanadia, as well as iron oxide, silica, and alumina, and other pertinent constituents. Many of these constituents have demonstrated catalytic activity in the presence of ammonia. Coal ash is plentiful, and inexpensive, and although it is expected to have lower surface area and catalytic activity, its low cost allows thousands of times higher catalyst loading and replacement. In addition, disposal is regulated as a non-hazardous waste. The proposal work concerns the quantification of NOx reduction activity of ammonia over coal ash in a bench scale fluid bed apparatus. A fluid bed would allow easy replacement of deactivated catalyst in a commercial scenario.